CAREER: studying superconductivity and ferromagnetism in 2D material heterostructures with flat energy band

NON-TECHNICAL DESCRIPTION:
Two-dimensional (2D) materials are materials made from single layers of atoms. Different 2D materials can be assembled into a designer structure to realize new properties and novel phenomena such as superconductivity and magnetism. This project utilizes a special design of 2D structure to study how electronic interaction can influence the stability of these novel phenomena, such as superconductivity and magnetism, in the quantum regime. Studying these phenomena on the nanometer scale is central to the advancement of quantum science, which promises to reshape the nature of technological innovation and has profound influence on national security and global economic balance. By training graduate and undergraduate students in device fabrication on a nanometer scale and exposing them to cutting edge research in studying quantum phenomena, this research and outreach program inspires and educates future scientists and engineers who can take on the leadership role and pioneer innovations in the field of quantum computational technology. The outreach effort includes collaboration with the Sci-Toon team to produce cartoon videos to expose the general public to the research activities. This project is jointly funded by the Division of Materials Research (DMR) and the Established Program to Stimulate Competitive Research (EPSCoR).

TECHNICAL DESCRIPTION:
Graphene moiré systems provides a fascinating material platform to study quantum phenomena, such as superconductivity and ferromagnetism, and investigate their interplay in a 2D confinement. This project utilizes specially designed 2D material heterostructure, which is usually referred to as the double-layer structure, to perform Coulomb screening and thermodynamic measurements on various moiré systems. A main objective is to understand the role of Coulomb correlation in stabilizing the superconducting and ferromagnetic phases. The role of Coulomb interaction offers important constraints to understand the pairing mechanism and order parameter symmetry of the superconducting phase, which has become an outstanding open question. This project also explores a new flavor of moiré physics using the proximity effect, which are shown to transform the ground state order of 2D moiré systems. By controlling the strength of Coulomb interaction through screening, the proposed effort directly studies the influence of the proximity effect and aims to establish a new method to engineer physical properties of 2D material structures. This project is jointly funded by the Division of Materials Research (DMR) and the Established Program to Stimulate Competitive Research (EPSCoR).